Mathematical Sciences Scientific Computing Research Environments

The Department of Mathematics at Northwestern University will purchase computer equipment which will be dedicated to the support of research in mathematics. The equipment will be used for three large research projects in mathematics, in particular in low dimensional dynamics and related areas; large scale symbolic manipulation computer calculations in various areas of mathematics as they relate to algebraic topology; and research in nonlinear evolution equations.